NSF Young Investigator

9457604 Idriss This project is a NSF Young Investigator Award. The subject of the research is concerned with the safety of bridges, in particular steel bridges. The research activity includes modelling the safety of steel bridges which have undergone various degrees of deterioration. The use of nondestructive evaluations and monitoring determine the condition of the bridge, and full or large scale testing to verify the mathematical models. ***